Elements: Cyberinfrastructure for Historical Aerial Imagery (CHAI): Open, AI-Enabled Workflows to Democratize a Century of Irreplaceable Data for Science, Policy, and Education

Historical aerial photographs collected across the United States over the last century represent one of the nation’s largest and most valuable untapped scientific records. These images document long-term environmental and societal change before the satellite era, providing irreplaceable evidence of landscape changes, agricultural development, urban growth, and infrastructure development across generations. Yet most collections remain difficult to use because they are scattered across archives, inconsistently described, poorly georeferenced, and incompatible with modern analytical tools. The Cyberinfrastructure for Historical Aerial Imagery (CHAI) project addresses this challenge by developing open-source, artificial intelligence enabled software that transforms historical aerial imagery into accessible, interoperable geospatial data products. By lowering technical barriers and democratizing access to this public record, the project expands opportunities for research, education, land management, and public understanding of long-term landscape change while supporting workforce development in geospatial science and artificial intelligence.

This project develops a modular cyberinfrastructure toolkit that converts raw historical aerial scans into photogrammetry-ready datasets compatible with modern geospatial and Structure-from-Motion software. The research integrates computer vision, machine learning, optical character recognition, handwriting-text recognition, and geolocation methods to automate metadata recovery, image restoration, sequence reconstruction, overlap detection, and control-point discovery. The toolkit combines graph-based flight reconstruction, and multimodal geolocation methods to estimate image placement and uncertainty across heterogeneous archival collections with sparse metadata. CHAI generates standardized outputs, including cleaned imagery, metadata sidecars, spatial footprints, and georeferencing priors suitable for downstream orthomosaic and three-dimensional reconstruction workflows. The project validates these methods using agricultural, urban, coastal, and polar imagery collections from federal and university archives. All software, documentation, and trained models are released under permissive open-source licenses to support reproducibility, interoperability, and long-term community adoption.